Parallel Pascal compiler for PRAM

This project involves the creation of a new parallel programming language, called PRAM-Pascal, and the construction of a compiler of this language into machine language of a parallel random access machine (PRAM). When completed, it will allow users to program in a high level parallel language similar to C* of Connection MachineTM and to monitor the execution of the code. Such a compiler would provide colleges and universities with an environment where undergraduate computer science students can experiment with a parallel computer.